Mathematical Sciences: Problems in Universal Algebra

Three important properties of universal algebras will be studied: the amalgamation property, deductiveness, and congruence modular varieties. The research on the amalgamation property centers on two problems. 1. Determination if the amalgamation property plus residual smallness implies the congruence extension property. 2. Characterization of the amalgamation bases of the variety. The plans for deductiveness are less specific. The general issue is to attempt to classify those varieties that are deductive. A third avenue to be pursued is the representation problem for the commutator in congruence modular varieties. All of these topics concern the foundations of algebra and are likely to be applied outside of algebra only to the extent that they condition a mode of thought about algebraic questions.